U.S.-Mexico Cooperative Research: Adaptive and Nonlinear Techniques for Robot Manipulator Control

This award will support collaborative research between Prof. Ismael Castelazo of Arizona State University (ASU) and Prof. Rafael Kelly of the Universidad Nacional Autonoma de Mexico (UNAM) in Mexico City, Mexico. ASU and UNAM have groups of researchers currently investigating position and force control techniques for robot manipulators. The objective of this project is to compare and evaluate the relative advantages of nonlinear control techniques studied at ASU with the adaptive control techniques pursued at UNAM, in an effort to develop a unified control strategy that takes into account the best characteristics of each method in particular operating conditions and for different manipulator designs. Special attention will be paid to the following specific areas of robot manipulator controls: a) force control; b) position and velocity control; and c) compensation of nonlinear and coupling effects. Analytical studies will be followed by real-time implementation in complementary facilities at ASU and UNAM. Control of robotic manipulators is a very active and important research field, not only because of the immediate benefits in industrial productivity obtained from the use of robots, but also because these sophisticated devices are an ideal test bed to investigate modeling and control techniques for servomechanisms in general. The potential for significant advances is enhanced by bringing together groups of researchers with complementary skills, approaches, and facilities to work on an important problem of much current interest.